International Postdoctoral Fellows Program: Exposure Age Dating of Late Weichselian Ice Sheet Boundaries in Western Norway

This award is under the International Postdoctoral Fellows Program, which enables U.S. scientists and engineers to conduct three to twelve months of research at foreign centers of proven excellence. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a twelve-month postdoctoral research visit by Dr. Edward J. Brook of Woods Hole Oceanographic Institution to work with Dr. Atle Nesje of the University of Bergen at the Centre de Spectrometrie Nucleare et de Spectrometrie de Masse (CSNSM) in Orsay, France. This project proposes to answer fundamental questions about weathering boundaries in Scandinavia and eastern Canada which provide important constraints on the history and size of past Northern Hemisphere Ice Sheets. The primary uncertainties in interpreting the significance of the boundaries are that the age of associated bedrock surfaces are not known and their mode of origin (ice limit vs. thermal boundary) is unclear. Dr. Brook and Dr. Nesje will date bedrock surfaces associated with weathering boundaries in western Norway using cosmogenic 10Be and 26Al. The results can be used to evaluate existing models of the Scandinavian ice sheet, theories about biological refugia during the last glaciation, and the processes that form weathering boundaries in arctic and sub-arctic environments. The award recommendation provides funds to cover international travel, a stipend for twelve months and $300 for excess baggage.